I-Corps: Translation Potential of Smart Keypad Switches for Enhanced Automated Teller Machine (ATM) Security and User Authentication

This I-Corps project is based on the development of a smart keypad technology designed to enhance security of personal identification number (PIN) and password authentication. The technology works by capturing not only the sequence of keys entered, but also the dynamic physical characteristics of each key press. Currently, credential theft and unauthorized access at Automated Teller Machines (ATMs), payment terminals, and access-control systems cost financial institutions and users over a billion dollars annually. This technology integrates sensors into keypad switches, enabling recognition of user press rate, duration, timing, and force. This approach aims to provide a complementary layer of security without requiring users to change their behavior or adopt new devices. In addition, the technology may offer value to manufacturers, integrators, and operators of keypad-based authentication systems by reducing fraud risk, while preserving the familiar keypad experience for end users.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a sensing-enabled keypad system for more secure authentication. The technology is based on a smart keypad system that strengthens personal identification number (PIN) and password security by recognizing the dynamics of how each key is pressed, not just which keys are pressed. Soft piezoelectric sensors are embedded into individual keys, allowing the system to generate measurable signals during each key press to capture user-specific input dynamics. These smart sensors are able to capture the rate, duration, and force of a key press creating over 2.5 million unique combinations that may be used to dramatically reduce PIN theft risk, even if all digits are skimmed or stolen illegally. Adding a passive behavioral-authentication layer directly to the keypad may complement existing security solutions and address vulnerabilities that occur at the point of credential entry using a keypad.